L-functions: Symmetry and Zeros

This project concerns the connection between fundamental
problems in number theory, zeros of arithmetic L-functions,
and random matrix theory. Recent developments have placed
the confluence of these fields at the center of a great
deal of important work that combines activity and interest
from researchers previously working in completely
different areas. The study of zeros of arithmetic
Dirichlet series, or L-functions, occupies a central
position in number theory and includes within its realm
both the Riemann Hypothesis and the Birch and
Swinnerton-Dyer conjecture. The theory of eigenvalues of
random matrices is a subject begun nearly 50 years ago by
physicists interested in the statistics of energy
levels of excited particles. The connection between these
two fields was revealed for the first time in 1974 in the
paper ``The pair correlation of the zeros of the
zeta-function'' by H. L. Montgomery. This project will
involve both number theorists and mathematical
physicists to develop a comprehensive new model
for families of L-functions in
order to gain insights into a number of fundamental open
problems about L-functions. For example, by combining
random matrix theory and number theory appropriately,
the principal investigator and his colleagues intend to
(i) find all of the terms in asymptotic formulae for
moments of families of L-functions, (ii) determine
precisely how large the extreme-most values of
L-functions can be, and (iii) analyze the vanishing
at the central critical point for
families of L-functions.

In 1859 Bernhard Riemann made a conjecture about an important
function known as the zeta-function.
Riemann's hypothesis is still unproven and is widely
regarded as the most important unsolved problem in
mathematics. It has long been known that the solution of
this problem would have significant applications to
cryptography, coding theory, and the study of
prime numbers. Recently, it has also been realized that
the zeta-function and the closely related L-functions
provide models for the behavior of fundamental particles in
physics. The project `L-functions: symmetry and zeros'
will bring mathematicians and physicists together to
explore this amazing connection more deeply through the
use of a statistical tool called `random matrix theory.'